III-COR-Small: Social Integration of Semantic Annotation Networks for Web Applications

Link analysis algorithms leverage hyperlinks created by authors as
semantic endorsements between pages, while social bookmarks provide a
way to leverage annotations by information consumers as a source of
information about pages. This project explores a novel approach that
is a synergy of the two: soliciting annotations from users about the
content of pages, in a way that implicitly forms networks of
relationships between and among resources and tags. These socially
generated relationships are then aggregated to build bottom-up,
global semantic similarity networks. Algorithms are developed to
construct, analyze, and mine these networks in support of search and
recommendation applications, exploratory navigation interfaces,
resource management utilities, tag spam detection, and incentive
games to accelerate the achievement of critical mass.

To extrapolate both annotations about content (tags) and semantic
relationships (similarity) from single users to the ``wisdom of the
crowd,'' the project investigates an information-theoretic model that
extracts semantic assessments from information structures that many
users are already maintaining, namely the bookmarks and tags they
manage on their browsers or online. This entails the design and
evaluation of several network-based measures and algorithms, such as
similarity, novelty, centrality, and focus. Among the aims of this
model are the exploration of the duality between resources (URLs) and
concepts (tags or categories) and the integration of social
annotation and collaborative filtering. One way to provide users with
immediate value is to integrate client-based taxonomies and server-
based folksonomies for social bookmark management. Both traditional
users of browser bookmarks and social users of online bookmarks can
take advantage of the same semantic maps while retaining the
convenience of intuitive browser interfaces and centralized storage.

Further information about the project can
be found at http://GiveALink.org.